CAREER: Singularities and Microstructure - Multiple Scale Analysis for Nonlinear Partial Differential Equations (PDE), Geometric Problems, and the Physical Sciences

DMS Award Abstract
Award #: 0135078
PI: Venkataramani, Shankar
Institution: University of Chicago
Program: Applied Mathematics
Program Manager: Catherine Mavriplis

Title: CAREER: Singularities and Microstructure - Multiple Scale Analysis for Nonlinear PDE, Geometric Problems, and the Physical Sciences

There exist a variety of tools for studying multiple scale behaviors
in nonlinear systems, and the method of choice for a particular
problem often depends on whether the investigator is an analyst, an
applied mathematician or a physicist. An important goal is to
effectively merge the various approaches, and develop new ways of
thinking about multi-scale problems. To this end, this project focuses
on investigating five interdisciplinary problems, using ideas from
functional analysis, geometry, topology, matched asymptotics and
scaling arguments, in conjunction with numerical simulations. These
problems are (1) Generalized crumpling: Combining functional analytic
methods with geometric/topological ideas to study singularities and
microstructure; (2) Blowup in Parabolic PDEs: Applying Morse theory to
the dynamics of blowup solutions; (3) Dynamics of microstructure:
Studying global bifurcations involving the change of microstructure in
a model system; (4) Pattern formation and non-equilibrium phase
transitions: Investigating multiple scale behaviors in nonlinear
systems in the presence of noise; and (5) Topological transitions in
fluid interfaces: Using tools from PDE to investigate topological
transitions in 2 fluid systems.

Many real world systems are interesting precisely because they exhibit
different behaviors on different scales. This is certainly true for
living organisms, geological and geophysical systems, technologically
important composite materials and even social structures and
hierarchies. Thus researchers across many disciplines grapple with the
following two questions, which are the essence of multiple scale
analysis: (1) How does the large scale (macroscopic) behavior emerge
out of the collective behavior of the small scale (microscopic)
units?, and (2) What are the rules governing the large scale behavior,
and how does this influence the behavior of the small scale units? The
research component of this project studies these questions in a
mathematical setting through problems that arise in material science
and in physics. The overall goal is to meld together a variety of
techniques to develop tools that can successfully handle complex
real-world multiple scale problems. This is combined with an
integrated approach to pedagogy, that features a strong involvement in
undergraduate and graduate research, development of research
opportunities for groups that are under-represented in mathematics and
the physical sciences, curriculum development both at the graduate and
the undergraduate level, and development of materials for scientific
outreach to the general public.

Date: December 17, 2001